Entanglement Dynamics in Open Bosonic Random Quantum Systems

Quantum technologies have the potential to transform information processing, sensing, and communication. However, a central challenge remains the fragility of quantum information in realistic systems that are continuously measured and influenced by their environment. As quantum technologies continue to advance, there is a growing need for new theoretical tools that can describe these effects in complex many-body open quantum systems. Such tools are essential for developing scalable and reliable quantum devices. This project addresses this need in two ways. First, it studies how repeated quantum measurements influence the growth and spread of quantum entanglement. Second, it investigates these effects in novel bosonic quantum computing platforms that may better protect quantum information from frequent local measurements and errors. Together, these efforts aim to establish bosonic systems as a powerful platform for exploring non-unitary quantum dynamics while addressing the need for novel quantum circuit architectures that can support scalable quantum computing beyond conventional qubit-based approaches. The project will strengthen U.S. leadership in quantum information science by integrating research with education and outreach. Activities include training graduate and undergraduate students, developing a new graduate course in open quantum systems, and expanding access to quantum science through a Louisiana Quantum Summer School. Together, these efforts will help build a future quantum-ready workforce.

This proposal combines state-of-the-art numerical simulations with novel analytical approaches to fully characterize and understand the potential of quantum computation with bosons. This research investigates measurement-induced entanglement phases in monitored bosonic quantum systems. First, the project will employ large-scale numerical simulations of interacting bosonic circuits with tunable measurement and interaction strengths to identify measurement-induced phase transitions and characterize their universal properties. Second, it will develop a new non-equilibrium field-theoretic framework that enables analytical studies of entanglement dynamics in monitored bosons beyond the reach of existing analytical methods. Together, these efforts will establish a theoretical framework for understanding non-unitary quantum dynamics in bosonic systems while fostering a quantum-ready workforce through training and educational opportunities at multiple career stages.